NSF IUCRC PLANNING GRANT

This proposal discusses the planning phase of a proposed I/UCRC Research Site of the Ohio State University Center for Advanced Polymer and Composite Engineering (CAPCE) at FAMU-FSU College of Engineering. CAPCE is an existing, successful I/UCRC. The proposed Florida Research Site compliments CAPCE by bringing to the joint I/UCRC (1) strong partners in the aerospace and construction industries as well as federal labs, and (2) additional capabilities in composite process design, modeling and simulation, and advanced material testing and characterization. This is in addition to conducting advanced polymer and composite materials research and manufacturing technology research similar to CAPCE's research focus.